Collaborative Research: RAPID: Resilience and Recovery among Ukrainian Small Business Owners

This project will enhance of our understanding of how entrepreneurs cope with crisis and loss as well as how various resilience factors can facilitate recovery and rebuilding in communities disrupted by war or other disasters. Knowledge from this project will significantly inform the development of future support for entrepreneurs who experience trauma.

The project will assess and track the well-being and coping processes of Ukrainian small business owners displaced by war. Specifically, it will assess personality and social factors associated with resilience as well as the nature of the trauma and loss they experienced. Participants will be tracked over the course of a year and assessed on their current well-being, coping strategies, and future plans.